Cone and Ovule Development in Relation to Systematics and Evolution of Taxodiaceae and Cupressaceae

Dr. Tomlinson and Japanese postdoctoral associate Dr. Takaso of Harvard University will study the classification of two families of conifers, the Taxodiaceae (swamp-cypress family) and Cupressaceae (true cypress family). Taxonomic distinctions among these conifers are limited by knowledge of reproductive features; much of our current understanding depends upon data provided by morphologists of the last century. On the other hand, conifers provide the opportunity to examine evolutionary processes and establish precise phylogenetic classifications because they have an extended fossil record so that it should be possible to trace lineages directly by comparing existing species with extinct forms. This comparison is made difficult, however, because cone morphology, upon which classification is partly based, is determined by processes of reduction so that the identity of reduced structures in modern forms is often difficult to establish in preserved fossils. The proposed research will look at the way in which these controversial structures originate in the growth of individual cones, starting from early stages of development. Scanning electron microscopy, which greatly facilitates the examination of early developmental stages, will be used extensively in conjunction with standard histological study of anatomy and vasculature. The information will help clarify taxonomic relationships among living genera and provide models for the interpretation of the morphology of fossil cones that have been proposed as ancestral forms of these conifers.